Improving Secondary School Geometry Instruction in Iowa

The main goals of the project are to improve the quality of geometry instruction in secondary schools by developing inservice leaders throughout the state of Iowa. There are to be intensive summer workshops offered for 68 prospective leaders during the summers 1988 and 1989. Some of the topics to be emphasized in these courses deal with geometric transformations and vector analytic geometry applied to computer graphics. The workshops also deal with didactical issues such as new directions in the geometry curriculum and methods of presentation of the new topics. Three or four master teachers are to be chosen to contribute to the instructional staff by demonstrating modern methods and materials. They are to serve as associates in the workshops. Mathematics supervisors from the State Department of Education and the regional education agencies in the state are to assist the project by helping to select the leaders as well as providing assistance in planning and implementing the inservice network that is to develop as a product of the project.